EXTension on the ENDeavour Segment (EXTEND): Illuminating the seafloor spreading cycle

Seafloor spreading centers are plate tectonic boundaries where underwater volcanoes generate new oceanic crust. A small network of seismometers on a cabled observatory off the west coast of North America has detected signals of an impending volcanic event. This study will deploy an array of seafloor instruments to enhance the cabled network so that the earthquakes associated with this event are recorded. The earthquake locations and characteristics will be used to investigate volcanic processes and improve the understanding of how seafloor hydrothermal systems are modified by volcanic activity. The results will provide knowledge relevant to monitoring active terrestrial volcanic systems and assessing their associated geologic hazards. This project will train undergraduate and graduate students in seagoing research and in modern computational techniques to analyze earthquake recordings.

Seafloor spreading through diking is a fundamental geological process, but it is hard to capture with autonomous ocean bottom seismometers alone because the decadal timescale of spreading cycles is an order of magnitude greater than the recording durations of current autonomous instruments. This project will study seafloor spreading at the Endeavour segment of the Juan de Fuca Ridge. This location has been monitored for approaching a decade by a small network of ocean bottom seismometers, and data indicate accelerating rates of microseismicity, meaning that another spreading event is expected soon. To take advantage of this opportunity, this study will augment the existing cabled seismic network by adding autonomous broadband ocean bottom seismometers so that focal mechanisms and depths near the center of the segment can be determined. In addition, during one year of this project, the network will be expanded to cover the footprint of off-axis seismicity near the center of the segment that is related to two propagating rifts. This experiment is designed to address the following questions: (1) Are diking events at the Endeavour segment triggered by extensional stresses, or magmatic pressures from a centralized source? (2) Do temporal changes in seismic velocity show evidence for precursory aseismic strain or ridge extension events that are not linked to dikes? (3) Is carbon dioxide exsolution linked to off-axis seismicity at the Endeavour segment? (4) Is the permeability beneath the Endeavour hydrothermal vent fields enhanced by the nearby propagating rifts?